Dissertation Research: Cunia: Tropical Rainforest Resource Use in a Traditional Community Living in an Amazonian Ecological Reserve

This project will examine household economic strategies and wild resource exploitation associated with market integration in a peasant community in an Amazonian ecological reserve. The central question is how the increasing market integration will affect traditional resource exploitation, household economics, and intra- community relations. The research represents a unique opportunity to examine an isolated population wherein a traditional, subsistence resource use system based on common property is influenced by increased outside demand; and it is important in understanding human impact on the environment in protected areas. It will also contribute to our understanding the effects of governmental control on protected areas which have human residents.